2-D Implementation of Monte Carlo Program for High-Field, Ultrafast Studies of Semiconductors

A general purpose, self-consistent ensemble Monte Carlo model will be developed for two- dimensional high-field transport & ultrafast phenomena in compound semiconductor devices. A "super-particle" with "cloud-in-cell" charge assignment scheme for either separate or combined background electron and photo- generated carrier sub-ensembles, which couples an efficient Poisson solver to the Monte Carlo algorithm using the evolving distribution functions in a self-consistent way. The program will employ an adaptive energy scale in combination with a scheme to reduce self- scattering rate while maintaining resolution of the energy distribution without a prior assumption on the maximum electron energy. These feature will enable, for the first time, interactive implementation of such complex computations on a work-station level platform.